Instrumentation for Undergraduate Studies of Physiology, Endocrinology, Cellular and Molecular Biology.

Student laboratory opportunities in Molecular and Cellular Biology, Endocrinology and Physiology are being enhanced, and increased opportunities for undergraduate research and internships are being provided through the purchase of needed instructional instruments. Renovated cell culture and endocrinology laboratory facilities as well as new instrumentation for enzyme-linked immunosorbant assays, cell culture, high pressure liquid chromatography, and spectrophotometry are providing significant links between students' laboratory and field experiences in whole organismal biology at the College's field station and their laboratory experiences in Cell Biology, Physiology, Microbiology and Endocrinology on campus. Increasing student understanding of both the potentials and the limitations of blood screening procedures also is being gained by non- majors through use of the enzyme-linked immunoassay equipment procured under this award. Such socially relevant laboratory experience is an important aspect of education for non-scientists who will be decision makers in a technology-based society.